Numerical Investigation of Plasma Quantum Effects in Stellar Interiors

It is intended to study quantum effects in basic plasma processes (as occur in stellar interiors), and their consequences for plasma reaction rates and equations of state, with applications in stellar evolution (including the solar neutrino problem) and in the early universe (its energy density). The studies will utilize the novel multiparticle quantum code recently developed at UCLA, which is designed to handle hundreds of quantum particles.